Gravitational Waves and Their Detection

The 2000 Winter Conference of Gravitational Waves and their Detection will take place at the Aspen Institute of Physics from February 20 through February 26, 2000. About 75 scientists and engineers are expected to attend. This is the fourth in a series of interactive conferences designed to explore new experimental techniques for the detection of gravitational radiation. The grant will provide funds from the NSF to pay for part of travel expenses for about five participants selected on the basis of their need for funds and the importance of their participation to the conduct of the conference. Preference will be given to students and research associates.